Presidential Young Investigator Award

This award provides research support to Dr. Michael G. McNally under the Foundation's Presidential Young Investigator Awards (PYIA) program for the fifth year base and fourth year matching of $37,500. The research will focus on an investigation of the performance of transportation systems subject to earthquake ground motions; and the assessment of impacts of travel behavior on the physical environment using theoretical and operational models of complex travel behavior previously developed by the researcher.